FSML: Water Treatment System and Electronic Communication Capability for the Rocky Mountain Biological Laboratory

The Rocky Mountain Biological Laboratory (RMBL) is an independent, nonprofit field station with no institutional affiliation, which provides facilities for researches who wish to study high-altitude biology in a field setting. Researches have come to the RMBL for 69 years, and during that time have patiently put up with inadequate housing and research facilities. Recent facilities grants from NSF assisted with construction and renovation of several buildings. With this project RMBL will provide necessary treatment of its water supply and proper installation of telecommunications cables to laboratories, offices and residences. First, though RMBL's water has consistently tested as high quality, new State Public Health Department regulations require treatment of all water sources classified as surface water sources. A treatment system designed by a Water Treatment Engineer needs to be installed. Second, a rural improvement grant for the local telecommunications company provided service to RMBL in late 1995. During summer 1996, RMBL staff laid unprotected surface cables to a number of laboratory and residence buildings, to facilitate immediate use for that field season. These surface cables need to be encased in weatherproof protection, buried where necessary, and the network completed according to a master distribution plan.